IMR: MM-1C: Fine-grained Network Monitoring via Software Imputation

Computer networks are an essential component of the computing infrastructure that drives numerous products and services in modern society. Network monitoring is essential for detecting malicious activities, troubleshooting, and managing the resources of a network. However, accurate monitoring is notoriously expensive or even infeasible, due to hardware limitations. Network operators use sampling, i.e., they monitor the network less frequently to save on resources. However, sampling makes network management more challenging as it can hide important insights or miss certain events. This project will develop innovative technologies to build a software component, namely a Telemetry Imputation Layer (TIL), that will work atop the networking hardware to improve the accuracy of monitoring. TIL has the potential to revolutionize network management, where network operators will have access to monitoring of unprecedented quality, thereby facilitating more secure, reliable, and performant networks. At a high level, TIL is analogous to image super-resolution in which low-resolution images can be turned into high-resolution ones. For images, super-resolution is possible thanks to the correlations among neighboring pixels and the underlying structure of the images. For network monitoring, the imputation is possible due to the existence of physical constraints and of correlations among the monitored time series.

This research involves solving interdisciplinary challenges that require knowledge of systems, networking, machine learning (ML), and formal methods (FM), to facilitate advances in network monitoring. First, this research will develop an ML model that recovers fine-grained monitoring
data from coarse-grained measurements, precisely enough to perform known network management tasks. To this end, the research will investigate different ML models and training pipelines to avoid common ML pitfalls such as lack of generality, overfitting, and data scarcity. Next, this research will develop FM techniques and a logic-based model that connects network operations and monitored measurements via constraints. Using this model, the project will provide the means to answer network management queries using fine-grained network data that are consistent with given scenarios and coarse-grained measurements. Finally, this project aims to develop methods that combine the ML and FM techniques for network imputation in order to benefit from both the existence of data and knowledge in the networking domain.